Tropospheric Oxidation Chemistry: Atmospheric Observations and Laboratory Studies

This project involves laboratory and field studies to help elucidate the chemical mechanisms underlying ozone production and hydroxyl radical reactivity in the atmosphere. This research includes intercomparison and development of instrumentation for measuring atmospheric free radicals, and studying the mixing ratios, loss rates and kinetics in urban, rural, and remote sites of the hydroxyl and the hydroperoxyl radicals. The project will investigate the source of observed and evening and nighttime signals of these radicals, as well as develop and deploy detection capabilities for atmospheric free radicals.